Mechanism of Sense-antisense RNA Interaction in ColEl Replication: Role of ROP Protein

This award is a ROW Research Planning grant which will try to take advantage of the recent discovery that naturally occurring RNA gene products can control gene expression by direct interaction with complementary target DNA. The investigator will apply her experience as an enzymologist to a kinetic dynamic analysis of RNA to determine the mechanism of the facilitation of formation of RNA complexes during replication. The investigator brings much needed biochemical sophistication to an important area of research, the regulation of RNA replication.